International Travel Grant to Attend 23rd Joint UJNR Panel Meeting in Japan, May 20-25, 1991

This is an international travel grant to support the Principal Investigator's visit to the 23rd UJNR Joint Meeting in Japan in May 1991, where he has been invited to participate in one seminar arranged by NOel Raufaste, NIST, and other meetings. While in Japan Prof. Mahin will join the UJNR Panel in visits to Gifo, Nagoya and other Japanese cities. The proposed activities will enable Prof. Mahin to: (a) by invitation make a technical presentation on the 1989 Loma Prieta Earthquake, (b) exchange information on earthquake engineering, and (c) be cognizant of current research efforts being undertaken in various research institutes and organized research units in Japan. This effort will develop research cooperation between U.S. and Japan as part of UJNR Panel activities in the areas of advanced technologies involving design, composite materials and computer engineering in connection with natural hazards.